Statistical Nonequilibrium Thermodynamics of Stationary and Nonstationary Molecular Systems

Professor Joel Keizer is supported by a grant from The Theoretical and Computational Chemistry Program to continue his work in the area of statistical thermodynamic treatment of nonequilibrium systems. This work has a potential for providing a unifying physical explanation of thermodynamic properties for systems far from equilibrium, including systems undergoing steady state chemical reactions. Keizer will utilize both computer molecular dynamics and the statistical theory of nonequilibrium thermodynamics to investigate the nature of molecular fluctuations in shear flows and chemical reactions under steady state conditions. In related work, he will also extend his analytical calculations of the effect of molecular forces on the steady state properties of chemical reactions, including both molecular fluctuations and thermodynamic properties.